Dissertation Research: History of "The Coral Reef Problem" from Explorations to Explosions

Project Summary
A History of the "Coral Reef Problem," from Explorations to Explosions

Intellectual Merit
The objective of this project is to produce a history of what became known
as the "coral reef problem," from European naturalists' first explorations
in the Pacific to the mid-twentieth century, when new types of coral
research were made possible through the aftermath of the U.S. nuclear
weapons testing programs at the coral atolls of the Marshall Islands. This
question consumed participants ranging from naval policymakers to
science administrators, and it was taken up by a diverse but mutually
recognized group of naturalists and scientists from a variety of distinct
backgrounds and disciplines. What united them was a common discourse
on the formation of coral reefs, but what divided them promises to offer
insights into the practice of studying nature and the ways of formulating
theories as they changed over this time.
Scientists have used coral reefs as a place to juxtapose kingdoms of
nature, the present and the past, and conceptions of the individual and the
community. Reefs have constituted a point of intersection for many of the
classic notions of how the study of nature should be divided: they are at
once animal, vegetable, and mineral. The "life" of a single reef unites the
present and the ancient past. They are renowned as complex ecosystems,
but students of their growth and shapes have treated them as organic
individuals.
For these reasons, the coral reef problem at issue in this dissertation has
been of sustained intellectual significance to scientists over the past two
hundred years. The project will be a history of the ideas those scientists
produced. And when science has commanded the attention of politics and
the fascination of society-as over evolution and the Bomb-coral reefs
have been the experimental and explosive proving ground for some of
science and culture's deepest reaching questions.

Broader Impacts
This project will be of interest, then, to anyone who hopes to understand
how science has brought coral reefs from the periphery of our
understanding to the center of our conceptions of what is most complex,
fragile, and valuable about nature. It will also be of substantial relevance
to historians, philosophers, and science teachers interested in the way that
scientific problems have been asked, answered, challenged, and tested
during the development of modern professional science. This project
shows how members of very different scientific disciplines-natural
historians, geologists, zoologists, ecologists, and physical geographers-
set about attacking the exact same question: how are coral reefs formed?